UC Alliance for Graduate Education and the Professoriate Phase II

The UC Alliance for Graduate Education and the Professoriate (UC AGEP) is uniquely poised to
increase the number of underrepresented minority (URM) students who enter the professoriate in
science, technology, engineering and mathematics (STEM). In Phase II of UC AGEP, the broader
impact of this program will be to increase the number of URM STEM students earning PhDs and
becoming optimally prepared for the professoriate. Its intellectual merit lies in its production of new
model programs for recruiting, retaining, and graduating URM STEM PhDs and assisting with
postdoctoral placements.

The UC system currently produces approximately 10% of the nation.s URM PhDs in the Life Sciences,
Engineering and Computer Sciences, Physical Sciences, and Mathematics. In Phase I of its AGEP
program, UC AGEP increased URM new STEM enrollment both in real numbers and as a percent of
total enrollment. To sustain this gain and increase representation of URMs in the professoriate, UC
AGEP Phase II will expand its recruitment and admission efforts while addressing key later components
from retention through postdoctoral placements. Specifically, UC AGEP II will implement a six-step
program designed to:

1. Increase the number of URM STEM students aware of and prepared for graduate study through
dissemination of information about UC AGEP activities and summer enrichment opportunities
for undergraduates.

2. Increase the number of URM students who apply to UC campuses and who are considered for
admission to the University through pre-application events, partnerships with minority serving
institutions (MSIs) such as Historically Black Colleges and Universities (HBCUs), partnerships
with California State Universities and summer programs for masters students.

3. Increase both the number of URM students who are admitted, and the number who choose to
accept offers through: 1) targeting interactions and assistance to admission committees; 2)
increasing opportunities for campus visits; 3) increasing communication with admitted students;
and 4) providing summer enrichment opportunities for newly admitted students.

4. Impact the early academic experience of URM graduate students and improve their retention by
creating community networks, improving faculty mentoring, and enhancing students. skills for
coping with academic hurdles such as the qualifying exam.

5. Support continuing URM graduate students through programs that improve their professional
and academic skills, and prepare them for postdoctoral positions and the academic job market.

6. Create new models for increasing URM access to and participation in postdoctoral scholar
positions, thereby ensuring their competitiveness for academic positions.

UC AGEP Phase II expects project outcomes to include increased URM awareness of UC STEM fields,
better preparation of applicants, increased URM numbers (and percentages) for application and
matriculation, increased retention, a decreased time to degree, and better access to postdoctoral positions.
Thus, over the next five years, UC AGEP II should result in a significant increase in URM PhDs who
graduate from UC programs and enter the professoriate. Also, by comparison of best practices, the UC
AGEP infrastructure will foster the building of networks and models for diversity interventions that will
persist after the grant period ends.